WORKSHOP: International Workshop on Theoretical and Algorithmic Aspects of Sensor and Ad-hoc Networks

Intellectual Merit:

The workshop seeks to bring together different research disciplines to initiate a
comprehensive technical discussion on theoretical and algorithmic approaches: network
modeling, performance analysis, and algorithm design. The objective of the workshop is
to identify several common theoretical and algorithmic approaches that can address
issues related to sensor and ad-hoc networks.
The central topic of the workshop revolves around the following questions: Given a large
sensor network, what are the appropriate solutions/tools to model, analyze, and design
algorithms for this novel network? What are the emerging new applications and new
problems for sensor networks? What are the theoretical challenges in the future sensor
network design and deployment?

Broader Impact:

This workshop seeks a broad impact through a mix of researchers from theoretical and
system study and by helping to stimulate collaborations. We believe that theoretical
progress on the research topic in the workshop will have a long-term impact on
understanding the fundamental issues and real deployment of sensor networks.